Mathematical Sciences: The Geometry of Lorentz Surfaces

9401825 Weinstein The research covers topics in the geometry of Lorentz surfaces concerning their diffeomorphisms and embeddings into Minkowski 3-space. Conformal structures of time-like surfaces will also be studied. The research has potential applications to general relativity theory and string theory in mathematical physics. ***